Travel: Student Travel Grant for the 18th International Conference on Logic Programming and Non-monotonic Reasoning (LPNMR 2026) and Doctoral Consortium

This project supports travel for graduate students from U.S. institutions to participate in the 18th International Conference on Logic Programming and Nonmonotonic Reasoning (LPNMR 2026) and its Doctoral Consortium, to be held in Klagenfurt, Austria, from September 7 to 11, 2026. LPNMR is the premier international conference in logic programming and nonmonotonic reasoning, foundational areas of Artificial Intelligence (AI) that underpin advances in knowledge representation, automated reasoning, explainable AI, planning, natural language processing, robotics, cybersecurity, and semantic technologies. These areas continue to play an increasingly important role in both academic research and industrial applications.

The LPNMR 2026 Doctoral Consortium is designed to support doctoral students by providing opportunities to present their research, receive feedback from leading researchers, and engage in mentoring and professional development activities. Students supported through this project will participate in research presentations, poster sessions, mentoring meetings, networking events, and technical sessions of the conference. They will interact with internationally recognized experts, receive guidance on research directions and career development, and establish professional connections within the international logic programming and AI community. By providing access to cutting-edge research, mentorship, and an international professional network, this project will help prepare the next generation of researchers in logic programming and AI and strengthen the U.S. research workforce in these strategically important areas.